U.S.-Japan Seminar: Gene Regulation and Expression in Mitochondrial Disease and the Aging Process/December 1992/ Honolulu, Hawaii

This award will support the participation of ten U.S. scientists in a U.S.-Japan Seminar on Gene Regulation and Expression in Mitochondrial Disease and the Aging Process. The seminar, which will be held December 7-12, 1992, in Honolulu, Hawaii, is being co-organized by Professor Roderick Capaldi, Institute of Molecular Biology, University of Oregon, and Dr. Takayuki Ozawa, Department of Biomedical Chemistry, Nagoya University. The seminar will focus on the latest developments in basic research on mitochondrial biogenesis, combining the interests of scientists who study the basic process of oxidative phosphorylation with those who study mitochondrial dysfunction in a wide variety of diseases and in the aging process. In addition to U.S. and Japanese scientists, the seminar will include researchers from Australia. This seminar follows a successful seminar in December 1987. The seminar topics are: structure and replication of mitochondrial DNA, regulation of mitochondrial molecular biology, biochemistry of mitochondrial enzyme complexes, bioenergetics and relationship to mitochondrial disease, nature of mitochondrial mutations associated with disease, mitochondria and the aging process, and treatment of mitochondrial diseases. The goal of the seminar is to encourage the sharing of expertise, which could lead to collaboration in this important area of research.